Modular Curriculum for Hydrological Advancement - Toward an Online Faculty Learning Community for Hydrology Education

Interdisciplinary (99)

The Modular Curriculum for Hydrologic Advancement (MOCHA) is establishing an online faculty learning community for hydrology education and a modular curriculum based on modern pedagogical standards. The overall objective is to create a continuously evolving core curriculum that overcomes traditional biases and is freely available to, developed, and reviewed by the worldwide hydrologic community. This project is developing a web-portal to support this community-driven curriculum development. MOCHA is preparing a demonstration set of three peer-reviewed, tested, state-of-the-art web-based hydrology teaching modules, including teaching notes outlining best in-class implementation strategies. These modules address precipitation, infiltration, and watershed modeling.

MOCHA is advancing educators' ability to help students address complex and interdisciplinary problems in hydrology. MOCHA is providing hydrology educators with the tools and materials to be efficient and successful teachers, while enabling students to gain (in-class) access to current, peer-reviewed, high quality education resources. Diverse contributors are working collaboratively to create material that addresses a wide range of student learning styles and needs. MOCHA is creating and institutionalizing an interdisciplinary hydrology learning community that can serve as a model for other STEM fields.